Research in the Area of Turbomachinery/Jet Egine Aerodynamics and Computational Fluid Dynamics

Research in the Area of Turbomachinery/Jet Engine Aerodynamics and Computational Fluid Dynamics This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project addresses research related to the measurement and computation of three-dimensional viscous flow in supersonic and transonic turbomachinery rotors, a study of rotor/stator interaction in high speed turbomachines, and flow field using a laser transit anemometer as well as other higher response probes. The computation will involve the solution of a set of eleven partial differential equations governing the flow field in this device. The project is under the direction of Professor Budugur Lakshminarayana, Department of Aerospace Engineering, The Pennsylvania State University, University Park, PA 16802, U.S.A., and Professor H. E. Gallus, Director, Institut fuer Strahlantriebe und Turboarbeitsmaschinen, Rhein-Westfalische Technische Hochschule, Templergraben 55, 5100 Aachen, Federal Republic of Germany. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.